Advanced Cement Matrix Materials: Synthesis and Processing of Alkali-Activated Cements

The work is on the development of high strength, high toughness cementitious materials. The study will consider the chemical and phase compositions and their influence on properties of this class of materials. Special emphasis is placed on decreasing defect content in this class of materials.//